Mathematical methods for nonlinear wave interactions

Abstract, DMS 0506495, R Goodman, New Jersey Inst of technology

Title: Mathematical methods for nonlinear wave interactions

This project studies interactions between waves in models from optics
and mathematical physics, and the relative stability of waves trapped
by localized potentials. Wave interactions in many applications have
been known for many years to display resonance structures in which wave
capture and reflection alternate in a surprising fractal-like manner.
Methods from the theory of dynamical systems, including Melnikov
methods, matched asymptotics, and transport theory of iterated maps,
are to be applied to ordinary differential equations models of such
wave interactions, extending recently published work of the PI. In a
second thread of research, we look at the nonlinear interaction between
trapped modes at potentials engineered into optical fibers, modeled by
the nonlinear Schrodinger equation (NLS), or the nonlinear coupled mode
equations (NLCME) in the case of fiber Bragg gratings. The NLCME
system lacks an energy-minimization principle (all bound states are
saddle points of the energy), yet somehow a ground state is chosen. We
study this using numerical analysis, derivation of simplified ordinary
differential equation models, and ideas from the spectral theory of
Hamiltonian systems.

Nonlinear wave phenomena are ubiquitous in physics. An important
engineering example is in optical communications, where information is
sent as pulses of light through glass fibers. It is important to
understand how these waves interact with each other, and with local
structures in the medium through which they travel, in order to better
design devices that exploit their novel properties. The aim of this
research is to extend mathematical theory from dynamical systems to
explain phenomena seen in wave interaction, such as wave-trapping. It
will use sophisticated computational and analytical methods, some
developed in the study of Bose-Einstein condensates, to study the
behavior of light in novel physical configurations.